MRI: Acquisition of an Automated DNA Analysis System for Biology Teaching and Research

A grant has been awarded to Dr. Sudman at Tarleton State University to
purchase an automated DNA analysis system. This instrument package will be
used to enhance the teaching and research activities within the Department
of Biological Sciences, specifically those related to molecular biology and
genetics. The use of this DNA analysis system, combined with the
introduction of DNA and protein analysis components into the laboratory
portions of many of their classes, will greatly enhance the educational
experiences of all of the students associated with the Biology Department.
This modern, technological approach to biology will give Tarleton students
advantages on three different levels. Exposure to modern research techniques
and instrumentation will 1) better prepare the students to enter post-baccalaureate educational settings - either traditional academic settings or medical related fields; 2) prepare future K-12 teachers with a basis for explaining and perhaps demonstrating the uses of modern molecular
techniques; and 3) prepare students for entrance into the rapidly changing,
high-tech workplace.

From an educational standpoint, individuals that will benefit from the
acquisition of a DNA analysis system will include undergraduate students,
Masters level graduate students, area high school teachers, and researchers
both at Tarleton State University and the Stephenville branch of the Texas
A&M Agricultural Research and Extension Center. Undergraduate students
enrolled in courses in the Department of Biological Sciences such as
Heredity, Molecular Biology, and Laboratory Techniques in Biochemistry will
utilize the automated DNA analysis system in a variety of laboratory
situations. Students in the graduate course Laboratory Practicum in
Molecular Biology will also benefit from the apparatus. From a research
standpoint, undergraduate and graduate students involved with several
ongoing projects will directly utilize the automated DNA analysis system.
These research projects include generating data for investigating the past
history of various mammal species, DNA variation in an endangered bird
(Attwater's prairie chickens), determination of the origin of introduced
crabs in freshwater Texas lakes, introducing foreign genes into
baculoviruses to enhance insect resistance in plants, examining the origin
of specific "hybrid" plant species (such as peanuts), searching for genes
related to drought tolerance in plants, and investigations into the genetic
diversity of immune response genes in various species of mammals.

The acquisition of this DNA analysis system will have a tremendous impact on
the academic and research community associated with the Department of
Biological Sciences at Tarleton State University. From students seeking
teacher certification to those conducting Masters level research, an onsite
instrument for determining DNA sequences or other genetic differences
between or within organisms will provide a vital boost to the biological
teaching and research fields. The automated DNA analysis system will allow
more than 100 students per year the opportunity to obtain essential training
with a state-of-the-art biochemical analysis instrument. Finally, the
system will provide local access for the research community at the
Stephenville branch of the Texas A&M Agricultural Research and Extension
Center, fostering additional collaborative research activities between the
two institutions.